REU Site: Empirical Software Engineering

This funding renews a highly-successful CISE Research Experiences for
Undergraduates (REU) site at the University of Alabama Tuscaloosa. This
site focuses on empirical software engineering and its projects span
several exciting areas of inquiry, including text retrieval based
feature location, code clone evolution, software engineering techniques
and tools for computational science & engineering, and open-source
developer communities.

This REU site will allow 30 students (over three years) to experience
Software Engineering research. Participating students will attend
research training and professional development seminars. Students will
have the opportunity to submit their research to quality conferences and
to present their work, if accepted. The project team is committed to
including under-represented minority students in their research. Thus
this project has the potential to produce new computer science graduate
students and faculty members and to advance discovery and understanding
while promoting learning.